Few-Level Models in Atomic Radiation Theory

A two-part theoretical investigation is proposed of (i) vacuum relaxation processes from the new standpoint of the time dependence of bipartite entropy, and (ii) the emergence of anomalous optical pulse transmission effects in a short-pulse domain not examined previously. Both parts are supported by results obtained in the past twelve months. In part I, a new vacuum relaxation time dependence called sudden death of entanglement will be explored. The results have implications for the design of devices intended for quantum information processing in which preservation of quantum entanglement is needed. Part II is motivated by success in applying a so-called matrix potential method for solving nonlinear evolution equations, for example equations for optical pulse envelopes in nonlinear and quantum optical media. It is expected that such effects as so-called fast light and slow light can be made accessible in the nearly unexplored domain of broadband (very short) pulses, a domain excluded so far by the steady-state assumptions commonly associated with electromagnetically induced transparency.